The Use of a Hypercube in the Solution of Some Free Boundary Problems

Parallel algorithms will be developed, on a Intel iPPSC-D5 Hypercube, for the finite element numerical solution of free-boundary seepage problems using unstructured meshes and for the determination of the load balance and communication structure among the processors. The goal will be to develop load balancing strategies which will assign tasks among the processors to optimize the overall computational efficiency. Several domain splitting techniques will be used and evaluated including a relatively recent one developed by Italian researchers at the University of Pavia. Furthermore, scale up performance experiments will be performed on various systems both at University California Santa Barbara as well as at the University of Pavia. The knowledge and tools developed will provide techniques for the efficient solution of both free- boundary problems as well as the use of finite- element schemes.